POWRE: Directing Indole Alkaloid Synthesis from Catharanthus roseus Cultures

The goal of this project is to design a process for the production and recovery of ajmalicine from immobilized Catharanthus. roseus. In this process, the medium would be cycled between the bioreactor and the adsorbent column. The rate of product removal would be optimized to improve production, maximize recovery of product from the cell, and sustain long-term production of the cultures. Specific objectives of this project are to identify the steps which affect the production and recovery of ajmalicine, determine their associated kinetics, and then incorporate these rates into a model which can then be applied to optimize the strategy of resin addition.